Particle Acceleration and Dynamics of Supernova Remnants andRadio Galaxies

9318959 Jones and Rudnick This research will involve both an observational and theoretical study of supernova remnants and radio galaxies. The goal of the research is to determine the physical processes regulating the transport of high-energy particles and magnetic fields in diffuse radio sources. The principal investigators are experts in this research area. ***